REU: Competitive Dominance at Two Soil Resource Levels: An Experimental Investigation of an Old-Field Community

Fertilization can dramatically alter the structure of herbaceous plant communities, and the manipulation of soil fertility levels can offer insight into the mechanisms of species coexistence in nature. This project will experimentally test the interaction between competition and soil fertility in an old- field community by manipulating both the presence of dominant species and the level of soil resources. Experiments will consist of complete or partial removals of the 2 dominant species, Dactylis glomerata and Solidago altissima, alone together at low (control) and high (enriched) soil fertility levels. The effect on species richness, diversity, and other community properties will be followed. In complementary experiments, varying amounts of Dactylis seed will be sown in a newly plowed field to test the effects on community development of the initial presence and abundance of a dominant species. The study will be the first attempt to investigate whether competition with the dominant species has a different effect on community structure at high than at low soil resource levels. The data from these experiments will test a number of major, previously untested theories regarding the basis for coexistence among plants in natural communities.